MIP Transition: 2D Crystal Consortium (2DCC)

Non-technical Description
Two-dimensional (2D) materials, which are only a few atoms thick, are enabling advances in next-generation semiconductor and quantum technologies due to their unique properties that emerge when materials are reduced to atomic dimensions. Continued progress in this field depends on access to specialized synthesis capabilities, scientific expertise, and collaborative research infrastructure that extend beyond the resources of most individual laboratories. The Two-Dimensional Crystal Consortium (2DCC) serves as a national research platform that combines world-class user facilities with a robust scientific ecosystem connecting researchers from universities, national laboratories and industry representing a broad range of research and development missions. By integrating shared infrastructure, collaborative research, community data resources, workforce development, and knowledge sharing, the platform broadens access to advanced materials research while accelerating scientific discovery and innovation. This project facilitates the longevity of this nationally unique platform. Transition activities include intellectual property development, technology translation, and industry engagement, as well as knowledge sharing activities including community data infrastructure and hands-on training to prepare the next generation of synthesis scientists and materials practitioners.

Technical Description
The Two-Dimensional Crystal Consortium (2DCC) enables a national community of researchers to advance the synthesis, characterization, modeling, and data-driven discovery of two-dimensional layered chalcogenides through three tightly integrated facilities dedicated to thin-film growth, bulk crystal growth, and theory, simulation, and data science. These complementary capabilities combine molecular beam epitaxy, metalorganic chemical vapor deposition, advanced in situ characterization, atomistic modeling, and machine learning to investigate materials growth, defects, interfaces, and emergent physical phenomena. A comprehensive data management platform captures and curates detailed synthesis and characterization information on all samples produced in the facility, enabling reproducible research, community data sharing, and artificial intelligence-assisted materials discovery. The transition project preserves and enhances these nationally unique capabilities while strengthening collaborations with industry, national laboratories, and other federal agencies; advancing intellectual property development and technology translation; training the next generation of synthesis scientists and materials practitioners; and sustaining community software resources for data management and knowledge sharing. Together, these integrated activities provide a unique national platform that advances materials synthesis science, broadens access to world-class expertise and infrastructure, and enables discoveries that support future technologies.